Neurocontrol and Intelligent Diagnostics for Complex Dynamical Systems

This project addresses the utilization of neural network concepts in the design of control systems for complex dynamical systems. Neural networks can mimic certain human brain characteristics, a potentially powerful feature for autonomous control systems. These characteristics include : (1) the ability to learn and make decisions; (2) the ability to perform object and signature recognition under uncertain conditions and with incomplete information based on associative memory and generalization ; and (3) a high processing speed due to inherent parallelism and distributed computation. This research's goal is to study the feasibility of using neural networks as a basis for the development of true intelligent control and diagnostic systems with a high degree of robustness and the capability of real time adaptivity, learning, and decision making. The research focuses on system identification and neural space representation, the objective being to develop a viable network concept which can learn the dynamic behavior of a physical system, and derive a neural space representation of the system. The concept , when completed, will be implemented initially analytically on a set of simple finite order systems, i.e., a second order spring mass damper system. This will be followed by consideration of a robot arm to study the feasibility of applying the neural space concept to time varying systems, and then application to a flexible beam to evaluate the potential of neural networks in identification of flexible structures. Finally, it is proposed to study identification of systems with nonlinear components. The intent is to follow up this project with efforts oriented to the development of robust and adaptive neurocontrollers, and neural based failure detection and identification schemes.